Discovering the Profiles and Patterns of Software Evolution

9988227/9988315
Slaughter, Sandra
Kemerer, Chris F.
Carnegie Mellon University
University of Pittsburgh
Discovering the Profiles and Patterns of Software Evolution

Software evolution refers to the dynamic behavior of
software systems as they are maintained and enhanced
over their lifetimes. Software evolution is of increasing
importance as systems in organizations become longer-lived.
However, empirical studies of software evolution face particular
challenges due to the longitudinal nature of the evolution
phenomenon. As a result, there is relatively little scientific
knowledge about how software systems actually evolve.
This research has the objectives of developing and evaluating
models of the process of software evolution. Specifically,
this research seeks to: (1) Identify typical patterns in the
changes to software systems over time, (2) Determine the extent
to which the patterns coalesce into distinct evolutionary phases,
(3) Understand why systems follow similar or different
evolutionary paths, and (4) Develop and evaluate models that
predict the evolutionary patterns of software systems.
The empirical evaluation involves collecting, coding, and
analyzing more than 25,000 change events that occurred over
20 years in 23 commercial software systems. Given the relative
paucity of research on software evolution, this study should yield
unique insights that contribute to theory building. In addition,
longitudinal empirical data and databases on software change
histories will be created that are novel, detailed, and of high
quality.